Yohkoh 10th Anniversary Meeting -- Travel Support for Young Scientists

Martens, Petrus
"Yohko 10th Anniversary Meeting: Travel Support for Young Scientists"
AST-0132308

This award will be used to support the attendence of 4 young astronomers at the Yohko meeting in September 2001. The meeting will focus on coordinated multi-mission and ground-based observations of the Sun and will be a stimulating and intellectually profitable experience for these students.
***